Acquisition of a Console and Probes for an Upgrade of a 500 MHz NMR Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities: Multi-user (CRIF:MU) program, Professor Michael Tubergen and colleagues Nicola Brasch, Songping Huang, Anatoly Khitrin and Edgar Kooijman from Kent State University will acquire a console and two probes (3-channel self-tuning probe and a gradient probe for diffusion studies) to upgrade a 500 MHz NMR spectrometer. The award will enhance research training and education at all levels, especially in areas of study such as (a) reactions of vitamin B12 derivatives with nitric oxide species, (b) quantum amplification, multiple quantum techniques, and methods of adiabatic cross polarization, (c) protein-lipid interactions investigated using 31P and 1H single and multinuclear NMR, (d) designer MRI contrast agents from prussian blue analogues with high relaxivity for molecular and cellular imaging applications, (e) periodic mesoporous organosilicas, and (f) 19F analysis of liquid crystals and organic semiconductors.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to follow the progress of chemical reactions, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solids and in solution. Access to state-of-the-art NMR spectrometers is essential to carry out frontier chemistry related research and to train students in modern research techniques. The results from these NMR studies will have an impact on organic, materials, electronics and bioorganic chemistry research. The resources will be used not only for research activities but also for research training of undergraduate and graduate students including those from underrepresented groups.